Topology and Geometry of 3-Dimensional Manifolds

Culler and Shalen are continuing to investigate consequences of their
work on the character variety of a knot group. This involves studying
the relationship between the boundary slopes of a knot and the
topological properties of essential surfaces that realize the
slopes. It also includes their ongoing project with Dunfield and Jaco
about smallish knots in non-Haken manifolds, which is part of a
program to prove the Poincare Conjecture. A joint project by Agol,
Culler and Shalen, concerning the construction of covering spaces of a
triangulated 3-manifold by an inductive process, is also relevant to
this program. Agol is also continuing his work on geometric finiteness
of geometrically defined subgroups of knot groups, volume estimates
for non-fibered Haken manifolds and hyperbolic orbifolds, and the
complexity of algorithms in 3-manifold theory.

A fundamental problem in many areas of mathematics is to classify all
examples of a certain type of mathematical object. The objects of
study in this proposal are 3-manifolds, which are mathematical models
of 3-dimensional spaces. Since our universe is a 3-dimensional space,
the classification of 3-manifolds is directly related to our
understanding of nature itself. The classification problem for
3-manifolds is far from solved, but the work of many mathematicians
over the last 25 years has at least produced a conjectural
answer. Remarkably, the conjectures, if true, will provide a
unification of the most classical, rigid kind of geometry---both the
Euclidean version first studied by the ancient Greeks and the
non-Euclidean kind that constituted an exciting discovery in the 19th
century---and topology, a subject devoted to studying much more
flexible geometric structures, which until recently had developed
quite independently of the more classical theories. The work
supported by this grant forms part of the effort to verify the
conjectured geometric classification of 3-manifolds.